Planning Visit for Corrosion Research in Mexico

9602990 VanOrden This U.S.-Mexico Planning Visit will provide travel support to Drs. Ann C. VanOrden and Desmond C. Cook, of Old Dominion University, so that they may make research planning, site inspection and coupon exposure trips to the Yucatan Peninsula, Mexico. They wish to plan a research proposal in corrosion research with Drs. Juan J. Carpio and Luis Maldonado Lopez of the Universidad Autonoma de Campeche. The objective of this research is to use highly accurate instrumentation to determine the chemistry and crystallography of the oxide phase found in corrosion products formed in differing environments, and to correlate the corrosion products and corrosion rates with the environmental parameters available from the atmospheric monitoring of the sites. This planning visit will allow the investigators on both sides to finalize research plans and to evaluate the designated sites, which present some very harsh atmospheric exposure conditions. ***